Collaborative Research: Learning About Complex Systems in Middle School by Constructing Structure-Behavior-Function Models

Background: Artificial Intelligence theories of model-based analogy in conceptual design have led to a
methodology and a language for building functional and causal models of complex systems called
Structure-Behavior-Function (SBF) models. An SBF model of a system explicitly represents its structure
[S] (i.e., its configuration of components and connections), its functions (F) (i.e., its output behaviors), and
internal causal behaviors [B] (i.e. its causal processes that compose the functions of the components into
the functions of the system). The SBF language provides a vocabulary for expressing and organizing
knowledge in a hierarchy, which captures functionality and causality at multiple levels of aggregation and
abstraction.
Empirical research in the Learning Sciences using the SBF methodology have led to substantial evidence
that while experts model a complex system in terms of its structure, behaviors and functions, novices
express primarily the structure of the system, demonstrate minimal understanding of its functions, and
largely miss its behaviors.